Buildings: A Travelling Exhibit and Permanent Installation with Education and Outreach Programs

9627112 Hamilton The Science Museum of Minnesota will develop "Buildings: A Traveling Exhibit and Permanent Installation with Education and Outreach Programs". This is a multifaceted project that includes a 5,000 sq. ft. exhibit that will explore the science, technology, and human perception of buildings. The exhibit will tell three stories: 1) buildings must obey physical laws to stay up, 2) buildings are complex operating systems, and 3) buildings reflect and shape the societies that create them. The exhibit will initially be developed as a traveling exhibit that will circulate among the member institutions of the Science Museum Exhibit Collaborative (8 institutions) and then it will be reinstalled in the new SMM $77 million building. Additional partners collaborating on this project include the National Building Museum, the Society of Building Science Educators, Habitat for Humanity International, The ReUse Center, the Vital Signs Program and the Center for City Building Education. Special attention will be given to reaching girls and women and the physically challenged. A broad menu of public programming is planned and school-linked materials will be developed.